MRI: Development of a Long-range Airborne Snow and Sea Ice Thickness Observing System (LASSITOS)

Accurate knowledge of sea ice thickness over large scales is crucial for understanding the current and future states of the Arctic ice cover, and for near- and long-term predictions of Arctic marine environments. With the Arctic ice pack undergoing a major transition from perennial to seasonal ice, ice thickness - more so than ice extent - is a key variable describing the state and evolution of the ice-ocean system. However, methods of observing sea ice thickness at regional or basin scales with sufficient accuracy and resolution to capture growth and melt processes, detect hazards, or assess habitat quality are lacking. This project will develop an Airborne electromagnetic (AEM) snow radar system capable of being integrated into long-range Unmanned Aerial Systems (UAS). This will allow acquisition of basin-scale ice thickness and snow depth data as part of a network for Arctic observations that addresses information needs of researchers, local communities and industry. This MRI development project will contribute to NSF's Navigating the New Arctic Big Idea.

AEM methods offer a novel means of measuring sea ice thickness over the full range of thicknesses found in the Polar Regions. By remotely sensing the positions of the upper and lower surfaces of the ice cover, AEM measurements typically achieve an accuracy of better than 10% of the total thickness, with less sensitivity to uncertainties in snow cover or sea surface topography. Development and commissioning of the Long-range Airborne Snow and Sea Ice Thickness Observing System (LASSITOS) will also provide opportunities for education and training, including capstone projects for the University of Alaska Fairbanks' new minor in aeronautical engineering and student involvement in comprehensive calibration/validation field activities. LASSITOS is expected to generate interest among native students from coastal villages in northern Alaska, who represent another key stakeholder group for sea ice information. The leader of this project is an early-career researcher.